Approximation Algorithms for Network-Design and Transportation Problems

This project is concerned with the development of practical algorithms for several network design problems, including problems related to graph connectivity.

Another area studied is capacitated vehicle routing, which is closely related to the Traveling Salesman Problem. Given a collection of objects distributed at different locations, the problem is to deliver the objects to specified locations using a vehicle of bounded capacity. Such problems arise in transportation of goods and motion-planning of robots.